Acquisition of Fire Modeling Research Apparatus Including Cone Calorimeter and Room Calorimeter

ABSTRACT CTS-9413549 Jonathan Barnett This proposal requests funds to acquire laboratory instruments and experimental apparatuses for a fire science laboratory. The instrumentation will be used in a new fire science laboratory being constructed at the Worchester Polytechnic Institute. The Cone Calorimeter will be used to collect fundamental material properties for use in computer fire modeling. In addition to a similar use, the Room Calorimeter will be used for model validation. A computer workstation will be used for a dedicated computational platform. The new equipment will be used to attract new graduate students to the WPI's fire protection engineering program, enhance the laboratory components of the doctoral level scholars funded by an NSF GRTP grant, and help expedite the development of a new generation computer fire model. An university-based comprehensive fire research program supported by a large group of scholars will be developed.